Geometric PDE in Confromal Geometry and Relativity

Proposal DMS-0402294
Principal Investigator: Jie Qing (University of California, Santa Cruz)
Title: Geometric PDE in conformal geometry and relativity

ABSTRACT

Dr. Jie Qing proposes to study conformally compact Einstein manifolds.
Conformally compact Einstein manifolds play crucial roles in the
so-called AdS/CFT correspondence, which is a very promising theory that
predicts certain connections between quantum gravitational theory and
certain conformal field theory. In mathematics it has been known
that conformally compact Einstein manifolds provide a powerful approach to
the study of conformal geometry. Recent development in the study of the
scattering matrix in providing rather global, natural way to understand
the holography principle in physics seems very fascinating and promising.
Dr. Jie Qing is also interested in developing and study theory about
asymptotically AdS/dS space-times. For a start, one considers static
asymptotically AdS/dS space-times. The theory is not as well-known as the
study of asymptotically flat space-times. But it is as significant, if not
more, in the classic relativity and quantum gravitation theory.

The proposed research is to study the primary object in the
theory of holography principles that relate quantum gravitation theory
and some conformal field theory. It has become a part the field where
mathematicians and physicists can interact. It is a part of
the efforts to find a unified theory for all fundamental interactions
including the strong and weak nuclear interactions, electromagnetism, and
gravity. Advancements in this field will greatly improve our understanding
of the nature in theory. The proposed research is a very important part of
the undergraduate and graduate education programs in the department of
mathematics at University of California, Santa Cruz.